Financial Support for 20th Annual Symposium in Plant Physiology, Riverside, California, on January 21-23, 1999

9808309 Nothnagel This is the 20th Annual Symposium in Plant Physiology entitled "Cell and Developmental Biology of Arabinogalactan-Proteins," to be held on January 21-23, 1999 at the University of California, Riverside. This conference will provide researchers the opportunity to share research findings on Arabinogalactan molecules that are a class of complex macromolecules found on plant cell surfaces. Recent research indicates that these molecules serve important roles in plant growth and development. This meeting will bring together researchers in the field and to provide researchers the opportunity to establish future collaborative research projects. The meeting will involve a combination of oral and poster presentations. This meeting is unique in that it is the first meeting that will be focused specifically on plant arabinogalactan molecules.